Immobilization of H+ -ATPase in an Artificial Membrane

Adenosine triphosphate (ATP) is ubiquitous in nature since it drives many thermodynamically unfavorable reactions. Of the 240 enzymes which require ATP, many are critical to the synthesis of high-value biochemicals such as polysaccharides. ATP may be regenerated using phosphate donors, but removing the spent donors creates a separation problem. An alternative approach is H+-ATPase, a membrane-bound enzyme which regenerates ATP without forming waste products. The energy required for this reaction may be provided by a proton gradient. It is the purpose of this research to immobilize the H+-ATPase in a vesicle composed of an artificial membrane. To avoid the accumulation of spent salts, the pH gradient needed to power the H+-ATPase will be created electrochemically rather than with buffers. The ATP product will be used to produce glucose-6-phosphate from glucose using hexokinase to demonstrate that the ATP product will be useful for enzymatic syntheses.